Group Travel Award to the Moriond Workshop on Tests of Fundamental Laws in Physics; Les Arcs, France; January 23-30, 1993

This action will provide funds to cover conference fees and living expenses for about 12 young U.S. scientists to participate in the Moriond Workshop on Tests of Fundamental Laws of Physics taking place in Les Arcs, France, January 23- 30, 1993.